Excellence in Research: Functional dynamics of DYN-1 and its cross-talk with PLK-1 in regulating centrosome separation

Cells must accurately distribute their chromosomes each time they divide. This process is essential for normal growth and development. Accurate chromosome distribution depends on centrosomes, small cellular structures that organize the machinery needed for cell division. Centrosomes must separate properly to ensure accurate chromosome partitioning into two new cells. When centrosomes fail to separate properly, chromosomes can end up in the wrong cell, causing cell death. This project investigates the molecular mechanisms that control centrosome separation using the microscopic nematode worm C. elegans, a powerful model organism for studying fundamental processes that are conserved across species. This work will advance understanding of how cell division is regulated and strengthen biological research capacity at North Carolina Agricultural and Technical State University, a public, land-grant Historically Black College and University. The project will also provide research training for undergraduate and graduate students, integrate advanced microscopy and genome-editing approaches into the biology education curriculum, and introduce community members and K–12 students to cell biology through microscopy exhibitions and hands-on outreach. By combining fundamental discovery with research training and public engagement, this project will advance knowledge of cell division, expand access to authentic scientific inquiry, and support broader participation in the biological sciences.

This project will examine how the endocytic protein dynamin (DYN-1) and the mitotic kinase Polo-like kinase 1 (PLK-1) collaborate to mediate proper centrosome separation during Cænorhabditis elegans early embryonic divisions. Preliminary data suggest that DYN-1 regulates PLK-1 localization at centrosomes and that PLK-1 may phosphorylate DYN-1 to facilitate proper centrosome separation. This project will test this model using a multipronged experimental strategy that combines CRISPR/Cas9 genome editing, super-resolution and spinning-disk confocal microscopy, expansion microscopy, in vitro biochemistry, and reverse genetics in C. elegans. This research will pursue three objectives: 1) Map the nanoscale localization of DYN-1 at centrosomes during mitosis; 2) Determine whether PLK-1 directly phosphorylates DYN-1; and 3) Determine whether PLK-1 phosphorylation mediates its own location, centrosome separation; and Dyn-1-dependent centrosome separation. In addition to providing new mechanistic insights into centrosome separation, this project will engage undergraduate and graduate students in mentored research, incorporate project-generated microscopy datasets into biology coursework, and expand public access to scientific inquiry through microscopy exhibitions and K–12 outreach. These activities will provide authentic research experiences for undergraduate and graduate students, expand pathways into STEM for students, and strengthen the national STEM workforce by preparing the next generation of scientists for successful careers in biotechnology, biology, and the biomedical sciences.